Two-Level Atoms and Nonclassical Light

This work addresses questions of nonclassical behavior of light in laser and micromasers. Four projects will be examined. Two concern the dynamics of two level atoms interacting with the electromagnetic field, the third deals with nonclassical states and higher order squeezing and the fourth, the theory of twisted phase operators. The long time behavior of the Jaynes-Cummings model is examined in order to define probability distributions for atomic quantities and independent and coupled micromasers studied to explore differences from normal laser systems.